Planning Grant: I/UCRC for the Center for Rational Catalyst Synthesis

The planned I/UCRC for Rational Catalyst Synthesis intends to establish a research portfolio that can transform the art of catalyst preparation into a science through bringing powerful, complementary expertise to bear on fundamental problems of nanoscience and nanoengineering of heterogeneous catalysts. In nanoengineering applications, nanoparticles can be synthesized with specific size, content (single or multi-metals) and morphology and so be optimized for particular catalytic reactions or to minimize the content of expensive precious metals.

Catalytic processes represent a major underpinning of the U.S. economy and are responsible for commodity chemicals such as gasoline, textiles, and fertilizer and specialty chemicals such as pharmaceuticals. About 20% of the world’s economy depends directly or indirectly on catalysis. Broader educational impact will be achieved in the practical mindset of all projects and the students trained through their execution. This industrial bent will stem from two sources; first, internally, from the industry research experience of the leadership, and second, from direct involvement of industry in individual research projects. Educational outreach will include the recruitment and eventual industrial placement of underrepresented groups.